Summer Research Apprenticeship in Science and Mathematics

9353856 Peploski Clarkson University will continue its 5-week, residential, Summer Research Apprenticeship Program in Science and Mathematics. Students participate in a professional scientific research experience. Students work with a faculty mentor on a research problem that is of current interest. Lectures, workshops and seminars as well as career exploration and ethics of science discussions are also provided. A multi-faceted program that includes the participants high school teachers and alumni participation complete the project activities. ***